Water Resources, Sustainability, and Environmental Engineering

9320082 Vlachos A series of workshops and meetings among experts in water resources management, economic and resources sustainability, and environmental engineering from United States, Brazil and Portugal, will be conducted with the purpose of developing an agenda for joint research activities. The Inter-American Dialog on Water Resources organization will also participate in the elaboration of research issues related to the Agenda 21 put forth by the United Nations Conference on "Environment and Development" which took place in Brazil in June, 1992.